Investigation of Climate, Ice Dynamics and Biology using a Deep Ice Core from the West Antarctic Ice Sheet Ice Divide

This award supports the coordination of an interdisciplinary and multi institutional deep ice coring program in West Antarctica. The program will develop interrelated climate, ice dynamics, and biologic records focused on understanding interactions of global earth systems. The records will have a year-by-year chronology for the most recent 40,000 years. Lower temporal resolution records will extend to 100,000 years before present. The intellectual activity of this project includes enhancing our understanding of the natural mechanisms that cause climate change. The study site was selected to obtain the best possible material, available from anywhere, to determine the role of greenhouse gas in the last series of major climate changes. The project will study the how natural changes in greenhouse gas concentrations influence climate. The influence of sea ice and atmospheric circulation on climate changes will also be investigated. Other topics that will be investigated include the influence of the West Antarctic ice sheet on changes in sea level and the biology deep in the ice sheet. The broader impacts of this project include developing information required by other science communities to improve predictions of future climate change. The
project will use mass media to explain climate, glaciology, and biology issues to a broad audience. The next generation of ice core investigators will be trained and there will be an emphasis on exposing a diverse group of students to climate, glaciology and biology research.